Applications of Symplectic Geometry

Symplectic geometry, a branch of mathematics having its
origins in classical dynamics, has become an area of growing importance
in contemporary mathematics. In this project we propose several
plans for research that have as their common theme the application
of ideas from symplectic geometry to other areas of mathematics, and
in return the ways in which ideas arising from these applications motivate
new methods in symplectic geometry.

One of our projects involves extending ideas from the symplectic
geometry of compact manifolds to the setting of Banach manifolds
appearing in gauge theory and the theory of loop groups. Another
is a set of applications to combinatorics and real analysis, and
possibly number theory, centered on the generalizations of the
classical Euler-Maclaurin formula. Still another project is an
attempt to understand the structure of hyperkahler manifolds by
reworking the ideas of Atiyah and Bott on gauge theory over Riemann
surfaces in this context.